HBCU-UP Planning Grant

This planning grant proposal is written in response to the NSF 00-131 Program
Solicitation for Historically Black Colleges and Universities Undergraduate
Program (HBCU-UP). We believe that this planning grant will provide substantial
assistance to Savannah State University (SSU) in conducting an assessment of science,
mathematics, engineering and technology (SMET) education. Accordingly, Savannah
State University will develop an institutional plan to enhance SMET education through
curriculum improvement, faculty development, and infrastructure facility acquisition
and utilization. This planning grant will not only significantly enhance the academic
environment at SSU, it will also assist the institution in assessing its strong programs
as well as those SMET disciplines, where SSU is not producing enough qualified
graduates (with GPA 3.0 or higher) to enter graduate programs, be competitive and
receive their Masters or Ph.D. degrees.

Savannah State University is already assessing its programs and thus NSF support
will complement our planning process to improve curricula and instructional
programs in those disciplines that are not producing large enough numbers of
well qualified graduates entering graduate school or the work force in SMET-
related fields. This assessment period will end during the mid-semester in the
Spring of 2001; planning will take place between March 2001 and August 2001.
We anticipate receiving continued support from the NSF to plan the SMET
improvement grant proposal.